CAREER: Cost-Effective Application Deployments Spanning Multiple Cloud Services

The use of cloud computing services---services that host infrastructure on
which third-parties can run applications and store data---has skyrocketed in
the last few years. However, despite the growing number of cloud services, most
applications are deployed today on a single cloud service. This status quo has several
drawbacks---availability and performance offered by an application are limited
by the cloud service on which the application is deployed, and cost borne by
an application provider to meet performance goals is limited by the types and
pricing of resources offered by that service.

This research project will enable distributed applications to obtain better
availability and performance at lower cost by planning and managing application
deployments that span multiple cloud services. Recognizing the fact that different
components of an application have different characteristics, this project will
enable cost-effective multi-cloud deployments by matching the heterogeneity of
an application's components with the diversity of resources offered by
different cloud services. The research in this project involves three main
tasks---1) the development of algorithms to choose cost-effectively among the
myriad candidate configurations for deploying an application across cloud
services, 2) the design and implementation of a distributed measurement and
monitoring framework to dynamically reconfigure an application's deployment as
the state of cloud services and of the Internet change over time, and 3) the
development of tools and techniques that enable legacy applications
implemented for deployment on a single cloud service to be easily ported to
multi-cloud deployments. The research will involve significant
systems-building and experimentation with the proposed techniques applied to
deployments of popular applications on real cloud services.

Broader Impact:
In spite of the increasing popularity of cloud services, there remain several
concerns about their use. The algorithms and software systems developed as
part of this research may transform the ways in which application providers
use cloud services, thus easing concerns with respect to availability and
performance. The project also has a significant education component with the
introduction of new graduate and undergraduate classes, and public talks to
increase awareness about cloud services among small and non-profit businesses.